Planning and Coordination of the San Andreas Fault Observatory at Depth Project

0002680
Zoback

This project involves planning and coordination associated with the proposed SAFOD (San Andreas Fault Observatory at Depth) Project, to drill and core deeply into the San Andreas fault zone and conduct a broad range of scientific investigations in and around the drillhole and to utilize the hole for long term monitoring of an active plate boundary fault at depth. Such a project will provide fundamental constraints on the structure, composition, mechanical behavior and physical state of an active, major plate-boundary fault.

1. Coordinate and plan the overall scientific
2. Coordinate site selection studies and integrate data into GIS database
3. Convene workshops with SAFOD science team
4. Define engineering needs for drilling and borehole measurements
5. Develop and promote technology development program
6. Initiate (and follow) environmental impact analysis and site permitting
7. Represent project with federall, state and local agencies
8. Coordinate outreach to local governments and the public

The SAFOD Project is a component of Phase ! of NSF's EarthScope Initiative which is a component of the MRE request to Congress in the FY 2001 budget. These planning activities are crucial to the success of EarthScope.
***